First-Year Calculus From Graphical, Numerical, and Symbolic Points of View

A new curriculum combining graphical, numerical, and algebraic viewpoints on the main ideas and objects of calculus and supported by modern computing technology is helping students understand calculus ideas more deeply and apply them more effectively.